Suppression of Dendrites and Roughness by Impinging Flow and Flow-Through Electrodeposition

In the operation of rechargeable batteries it is desirable to keep the surfaces of the electrodes as flat as possible. Unfortunately, in real systems a major problem is the formation of dendrites (whiskers or columns) of material on the electrode surface; this reduces efficiency and greatly shortens battery lifetimes. This project will examine the suppression of dendrites by the use of special flow patterns. The approach is both theoretical and experimental.